SGER: Inclusion body formation in E. coli: What triggers this outcome?

Chemical, Bioengineering, Environmental and Transport Systems

SGER:Inclusion Body Formation in E. coli: What Triggers This Outcome?

Sarah W. Harcum
Clemson University
Proposal No. CBET 0738162

The objective of the current application is to characterize interactions between recombinant proteins and the host cell, with respect to inclusion body (IB) formation and to control and/or alleviate this phenomenon. The hypothesis is that IB formation is a cell-mediated process caused by interactions between the recombinant protein and components of the heat-shock response. The proposed high-risk research will obtain preliminary data to support a novel hypothesis on inclusion body formation in recombinant E. coli.